RUI: Studies in Numerical Relativity

Einstein’s theory of general relativity describes one of the four fundamental forces, namely gravity. It governs all gravitational interactions in the universe, ranging from the force that pulls a falling apple to the Earth to the expansion of the Universe itself. In particular, this theory describes black holes — i.e., objects whose gravitational force is so strong that even light cannot escape. The goal of this award is to advance our understanding of gravity and its role in the evolution of the Universe by considering several different astrophysical processes. Could arbitrarily small black holes form in the collapse of gravitational fields themselves? Could the collision of a small black hole with a larger star trigger some type of supernova? Would any universe have the properties that we observe today, independently of the particulars of the Big Bang, or do these observed properties require very specific conditions at the time of the Big Bang? Finding answers to these questions requires the tools of numerical relativity, i.e., computer programs that can find solutions to Einstein’s equations of general relativity numerically. Undergraduate students will participate in these activities, providing them with a hands-on research experience and generating a research-enriched learning environment at Bowdoin College.

The project's scientific goals in numerical relativity include the development and implementation of numerical algorithms for the solution of Einstein's equations of general relativity, as well as their application in relativistic astrophysics, in particular in the numerical modeling of black holes, their formation, and their interaction with other stars. Three different areas of gravitational physics are covered by this project: (i) critical collapse, aimed at better understanding the properties of the threshold of black-hole formation, (ii) astrophysical signatures of the collision of small and potentially primordial black holes and larger stars, and (iii) cosmological simulations with the goal of better understanding the robustness of inflation.